Conference Support for 6th Annual Energy Harvesting Workshop and 8th International Workshop on Piezoelectric Materials and Applications (IWPMA) Aug. 7-11, 2011

Intellectual Merit: 8th The International Workshop on Piezoelectric Materials and Applications
(IWPMA) 2011 meeting is scheduled to be held from August 7 - 11, 2011, in Roanoke, Virginia. This
meeting will be held in conjunction with 6th Annual Energy Harvesting Workshop, and 3rd Annual
Center for Intelligent Material System and Structures (CIMSS) Conference. The focus of the meeting is on energy. The workshop will provide in-depth information on the application of smart materials with a focus on energy related issues.

Broader Impact: The support from NSF will be mostly used for (i) enhancing student participation
targeting underrepresented minority participants, women, and high school teachers and students, (ii)
registration and travel support for lecturers providing tutorial and plenary speakers, and (iii) registration
fees for returning veterans to enhance their educational experience. The participation of small business
companies at this meeting will be supported through NSF I/UCRC: Center for Energy Harvesting
Materials and Systems (CEHMS). The meeting will serve as both a recruiting tool and as graduate
leadership training. The tutorials provided at the meeting will have strong emphasis on the involvement of
high school African-American students in higher research and education in Blacksburg, Virginia.